REU Site: Electrochemical and Chemical Energy Storage

Global energy use is expected to double by 2050 and much of that energy will be delivered as electricity. To keep up, the United States will need better ways to store energy (like improved batteries) and cleaner ways to produce fuels (like hydrogen made from water using electricity). This summer research program gives ten undergraduate students, mostly rising juniors and seniors studying chemical engineering, the chance to spend ten weeks working alongside university faculty on real-world projects in these areas. They will explore new materials for batteries, ways to use electricity to make hydrogen, and methods for safely storing and releasing that hydrogen. Beyond the lab work, students will tour a battery recycling facility and the Savannah River National Laboratory, attend professional development workshops, learn about research ethics, and meet visiting students from Thailand. At the end of the program, they'll present their findings in posters and talks similar to what professional scientists give at conferences, with funding provided to attend a major chemical engineering meeting. The program especially focuses on supporting students who might not otherwise have access to such advanced research opportunities, helping to build the next generation of scientists and engineers who will tackle the country's energy challenges.

This proposed REU site revolves around addressing global energy challenges through research on energy conversion, storage technologies, and the development of sustainable electrification-focused energy systems. Specifically, REU participants will have the opportunity to work on cutting-edge research projects involving new battery materials and cell designs, electrochemical production of hydrogen using electrolyzers, and the storage/release of hydrogen in/from various chemical carriers. The scientific objective of the REU site is to leverage the expertise of our strong team in hard and soft materials science, experimental and computational heterogeneous catalysis, electrochemistry, and mathematical modeling to advance the understanding of the role that novel materials and processes will play in enabling sustainable electricity/energy storage through electrochemical and chemical means. This REU site will train and expose students to advances in energy storage across a broad spectrum of approaches. Professional development efforts during the summer will provide the REU students with the non-technical knowledge and experience required to transfer discoveries out of the lab and place them into society. Finally, REU students will develop a professional network of colleagues around the country, making new connections to faculty, graduate students, and undergraduates at University of South Carolina.